S&AS: INT: Autonomous Battery Operating System (ABOS): An Adaptive and Comprehensive Approach to Efficient, Safe, and Secure Battery System Management

Effective battery systems are a cornerstone of the next wave of
innovation. Emerging technologies including electric-drive vehicles
(EVs) and stationary energy storage systems require integrated
battery systems to provide sustained and reliable power. A unique
opportunity exists for the software-controlled battery management
system (BMS) to play a crucial role in enabling continued
innovation. However, there are several unaddressed challenges to
current BMS design. A battery's decreasing capacity over time due
to aging necessitates that BMS automatically adapt to battery
changes. Furthermore, future BMS systems will require autonomous
reasoning capabilities to make economically-sound decisions on
users' behalf (e.g., scheduling battery charging times in a
personalized fashion). This project injects intelligence
capabilities into BMS design with the development of the Autonomous
Battery Operating System (ABOS). ABOS enables more
energy-efficient, long-lasting, and secure battery-driven systems.
Furthermore, the PIs incorporate computational and cyber-security
aspects of ABOS design into their undergraduate- and graduate-level
courses.

ABOS advances the science of autonomous system design with
simultaneously introspective and extrospective learning. ABOS will
learn and adapt to user-initiated charging/discharging patterns,
reason about how these patterns affect the battery's
state-of-health, and respond to potential faults or attacks. The
PIs and their external collaborators will develop a hybrid EV
simulation environment to test the ability of ABOS to control a
physical battery system. The simulation environment will evaluate
the effectiveness of ABOS in predicting battery state, minimizing
cost of operation, and handling failures and threats.